REU: University of Minnesota REU Site in Behavioral Sciences

This award will provide continuing support for a Research Experiences for Undergraduates Site at The University of Minnesota. The ten-week program will emphasize student participation in the research activities of faculty affiliated with the Center for Research in Learning, Perception, and Cognition in the College of Liberal Arts. Twelve undergraduates will participate, half from private liberal arts colleges in the state of Minnesota and half from the University; they will be expected to have completed their sophomore or juniors years. Students will: (1) assist with faculty member's research including opportunities to work as a member of a research team, (2) complete an independent research project, the final products of which will be a written report and a presentation to peers and participating faculty, and (3) participate in a multi- disciplinary seminar. Seminar activities include presentations by program faculty and faculty in related areas campus wide, laboratory tours, and lectures on research tools and design. The program will therefore include opportunities for the students to learn specific research methods, to apply these methods in the context of their own research, and to examine broad conceptual and methodological issues relating to psychology and the cognitive sciences. Participation in social/cultural events as well as common housing in a University dorm will help foster a strong community of students.